Chicago Chemical Laboratory Technology Education Partnership

Chicago Chemical Laboratory Technology Education Partnership Truman College, one of the City Colleges of Chicago, is establishing a partnership of secondary schools, community colleges, universities, and industries that focuses on Chemical Laboratory Technology education with an emphasis on such education for minority students. The project is: (a) coordinating the chemistry curricula of secondary schools, community colleges and universities in Chicago, (b) recruiting students from the secondary and community college level into the program, (c) providing chemical technology enhancement opportunities for secondary school teachers and community college faculty, (d) developing curriculum for advanced Chemical Laboratory Technology education, in particular a course in instrumental analysis, and (e) integrating the program with Chicago area industries and professional societies. This project is creating an urban model for advanced technology programs, addressing both the unique problems of inner city students, and their preparation for entry into high tech careers.